Mantle Flow Models for Melt Extraction at the Incipient Rift at 2 deg 40 N, East of the East Pacific Rise

This award is for an add-on to a funded field program to investigate the incipient rift located on the east side of the East Pacific Rise at 2 degrees 40'N by E. Klein and D. Smith (0099154). This incipient rift is volcanically active and may provide the unique opportunity of sampling the melting regime under the EPR with increasing distance from the axis. This add-on would carry out theoretical modeling of the upwelling and melting reime in order to improve understanding of the melt production and migration bvelow the EPR. The PI will work with M. Spiegelman to modify existing 2D mantle flow and melt models to include the incipient rift. After that, 3D models will be developed and tested against geochemical data.